Mathematical Sciences:Group Travel Award to the 5th International meeting on "Bayesian Statistics"; June 5-10, 1994; Alicante, Spain

9313045 Berger The Fifth International Valencia Meeting on Bayesian Statistics will be held from June 5 - 10, 1994, in Alicante, Spain. This series of international meetings is the major venue for presentation and dissemination or research on Bayesian statistical methodology. The Bayesian approach to statistics has experienced astonishing growth in recent years, driven in large part by its ability to solve difficult applied statistical problems in science and society in general. Participation in this meeting is crucial for researchers, especially young researchers, as the pace of developments in the area substantially outstrips the pace of publications. By attending the meeting, researchers will be able to acquire the latest Bayesian techniques, and will have ample opportunity to obtain feedback on their own work. A portion of the grant will go towards expenses of graduate students, since attendance at the conference will greatly augment their statistical education.